Effect of Experimentally Induced Stress on the PaleomagneticSignature of Lava Flows

Study of recently-erupted lavas from Kiluea volcano in Hawaii have shown that for individual samples, paleo magnetic directions may deviate from the orientation of the actual magnetic field by as much as several degrees. This project will study this discrepancy by: 1) Monitoring the local geomagnetic field while samples cool through the Curie temperature; 2) Laboratory work on stressed and unstressed cooled samples that have been collected specifically for this purpose; 3) Melting and cooling lava under controlled laboratory conditions and measuring the magnetic field. The results should benefit a wide spectrum of earth scientists including volcanologists, paleo magneticists, age daters, etc.